Continuation Support of High Latitude Geomagnetic Pulsation Measurements

This grant supports the continued operation, and analysis of the data produced by, induction magnetometers at South Pole and McMurdo Stations in Antarctica and Sondre Stromfjord, Greenland. These high geomagnetic latitude sites are ideally suited for the study of plasm physics processes which occur near the boundary of the Earth's magnetosphere, at the poleward edge of the auroral oval and in the polar cap. The data from this three station network, plus data from additional new magnetometers operated by the same group but supported by other programs, will make possible research which almost certainly will result in new insight into the various phenomena which produce magnetic micropulsations.